Theoretical Nuclear Physics

I will conduct theoretical research in the field of intermediate and low-energy nuclear physics. The projects share, in the main, the methods and models of the few-body problem, attention to the successful phenomenology of the strong interaction at the hadronic and at the quark level, and use of the electromagnetic interaction as a probe of properties of systems bound by the strong interaction. I will continue a study of the spin structure of $^6$Li because it is being used as a target of polarized neutrons for high-energy experiments which seek to understand the quark-gluon structure of the nucleon. Other projects in medium energy physics include pion production at threshold in nucleon-nucleon collisions, and pion photo- and electroproduction from nucleons at threshold. I will continue to study meson mixing related to the charge asymmetry in the nuclear force, and attempt to extract low energy Lambda-neutron scattering parameters from radiative kaon capture on the deuteron. The projects are intended develop our understanding of the strong interaction, especially as it manifests itself in few nucleon systems, and to support current experimental work being done in Europe and North America.